Building Excellence in Information Assurance for Federal Cyber Service

Utica College (UC), Syracuse University (SU), and the State University of New
York-Institute of Technology at Utica-Rome (SUNYIT), Herkimer County Community
College (HCCC) and Mohawk Valley Community College (MVCC) are
improving institutional and regional capabilities in Information
Assurance education and training via:
1) a Center of Excellence in Information Assurance physically located at the Griffiss
Business and Technology Park adjacent to the Air Force Research Laboratory
and other technology organizations engaged in information assurance research
and technologies. The Center will focus on the development and placement of
interns from undergraduate and graduate programs affiliated with the Center, for
Federal Cyber Service;
2) multidisciplinary undergraduate degree programs in Information Assurance
designed to draw upon the strengths of each institution; UC in cyber crime
investigations and computer forensics, SUNYIT in software and product
development and telecommunications, and SU's
as a Center of Academic Excellence in Information Assurance Education;
3) multidisciplinary graduate degree programs in Information Assurance that
parallel the undergraduate programs of study; and
4) articulated agreements with MVCC and HCCC to support their developing
programs of study in Information Assurance, including Associates degree
programs.